Project STAR-Students and Teachers Achieving Results

9454815 Bryant The Houston Independent School District (HISD) proposes a project called Students and Teachers Achieving Results, or STAR. The program will focus on secondary teachers in HISD and the other Urban Systemic Initiative school districts: Aldine, Alief, North Forest, and Spring Branch. STAR will provide training modules at Focus Centers, as well as alternative staff development materials developed by teachers to support the curriculum. These centers will offer a variety of training models based on the successful practices used in the district and the collaborating university centers. The training models will stress the use of units using demonstration, inquiry/discovery, experiment/laboratory, and cooperative learning models. STAR's intent is to design models with assessment strategies incorporated into the activities. HISD's goals of Project STAR are: Goal 1 Combine the use of telecommunications with model classroom- based science and mathematics professional development and preservice teacher education. Goal 2 Involve teachers in the continued development of appropriate instructional and assessment models using resources available on a district-wide network. The objectives of the STAR project are to: increase students' academic performance; increase the quality of mathematics and science pedagogy; develop advanced telecommunications support and information nationwide, and; provide telecommunications information infrastructure incorporating the widest variety of information technolgies.